Study of an Enzyme that Regulates Oil Synthesis in Seeds

Synthesis and degradation of triacylglycerols (TAG) in seeds during maturation and germination involve active metabolic pathways. Understanding the detailed mechanism of TAG metabolism will enable the control of food reserve deposition and utilization during active stages of the plant life cycle. It will also provide an indispensable information of how to breed or genetically engineer better seed oils for human utilization. The long term objective of the laboratory is to elucidate the mechanism of TAG metabolism in seeds. The focus is on a crucial TAG synthesizing enzyme, lysophosphatidate (LPA) acyltransferase, in maturing seed. This enzyme catalyzes the incorporation of acyl moiety from acyl CoA to the sn-2 position of 1-acyl-glycerol-3-phosphate, and the product phosphatidate will be further metabolized to either TAG or phospholipids. The enzyme has a very stringent acyl preference on both substrates, and thus controls the incorporation of preferred fatty acids into the sn-1 and sn-2 positions of TAG. The fatty acid composition, and thus the properties of seed TAG, rely heavily on the acyl preference of LPA acyltransferase. In this research proposal, the following two objectives will be pursued. The first objective is to examine whether seed LPA acyltransferase of a special acyl preference from one plant species will be active in another plant species after genetic transformation. Experiments will be performed to characterized seed LPA acyltransferases from palm, Brassica, and meadowfoam, to obtain their genes for transformation of appropriate plants, and to detect activities of the foreign enzymes in the transformed plants. Several different approaches will be used to obtain the gene; these approaches include: screening cDNA libraries for the genes by oligonucleotides deduced from the purified enzyme and by a bacterial gene, and functional complementation with a bacterial mutant. Putative E. coli mutant lines functionally complemented with plant cDNA encoding the enzyme have been obtained; these lines will be studied most intensively. If time permits, we will use the palm and meadowfoam LPA acyltransferase genes to transform Brassica, and analyze the transformed plants for activities of the foreign enzyme. The information will be crucial to our understanding of the control mechanism of fatty acid assembly into TAG in seeds as well as glycerolipids in non seed organs. The second objective is to test if a membrane-associated, lipid-metabolizing enzyme of bacterial origin can be active, in higher plants. by transforming Brassica with an E. coli gene encoding LPA acyltransferase and studying the expression of the bacterial gene in the transformed Brassica. %%% This project aims to take a gene which makes an enzyme that Produces a certain plant oil found in palms, and introduce the gene into other plants to see if they also would produce the palm oil. If this is successful the investigators have found a way for oil produced in plants not common to the US to be available in other species of plants common in this country. Furthermore, these enzymes could be used to make novel lipid biomaterials.